Influence of Anamalous Eurasian Spring Snow Cover on the Indian Summer Monsoon

There is strong empirical evidence that the areal extent of Eurasian spring snow cover is negatively correlated with the following summer rainfall over rainfall over India. The purpose of this research is to study the validity of this empirical relationship from a series of experiments with a general circulation model (GCM). The GCM is a global spectral model with rhomboidal truncation at wave number 40 horizontal resolution with 18 layers in the vertical. The physical processes include: surface biophysical processes, diurnal cycle, shallow and deep convection, cloud-radiation interaction and effects of large-scale and subgrid- scale orography. Three experiments are proposed with varying areal extent and depth of the Eurasian snow cover in the spring to study its influence on the summer monsoon circulations. All three experiments will simulate ensemble global circulations in an annual cycle mode from March 1 though September 30. The difference in these simulations are only due to the prescribed snow extent and depth over Eurasia on March 1. All other prescribed quantities will come from climatology. The first experiment is to determine the impact of a negative anomaly in the snow extent on the monsoon circulations by prescribing a minimum snow extent similar to that observed during the spring of 1970. In this experiment the PI will use average snow depth. The second and third experiments are designed to investigate the impact of a positive anomaly in the snow extent similar to that observed during the spring of 1972. In the second experiment the PI prescribe a minimum snow depth in order to isolate the effects of the surface albedo. In the third experiment he will prescribe a maximum snow in order to study the effects of albedo as well as the effects of melting and evaporation. The results of these anomaly experiments will be compared with the control simulations to test the statistical significance of these results..This research is important because it seeks to improve our understanding of relationships between important components of the climate system, surface boundary forcing and monsoons.